Efficacy in Social Traps

Social traps are settings in which individual and collective welfare are in conflict. For example, an individual taxpayer might be personally better off by acting (e.g., voting) to retain special tax breaks or entitlements, yet the nation as a whole might be better off if many such preferences were eliminated. One reason individuals may not act in the whole group's welfare is that they believe that such cooperative acts have little impact and/or that the group cannot successfully avoid the trap. This research explores how such beliefs are formed and how they guide cooperative behavior in social traps. One study explores how the necessity for coordinated effort in many social situations may undermine confidence in the effectiveness of personal cooperation. Another study examines whether people feel less overwhelmed by very large social problems when the problems are broken up into smaller parts. Another study explores whether people sometimes excuse their failure to cooperate in a group by saying their contributions just don't matter, and thereby convince themselves that future cooperation is also pointless. Yet another study tries to determine when a sense of helplessness might counteract other factors that would normally increase cooperation (e.g., loyalty to the group). This research will a) contribute to basic knowledge on how people think and act in social traps and b) suggest ways of strengthening peoples' beliefs that they and the groups to which they belong can solve their groups' problems.